Osmium Isotopes in Mid-Ocean Ridge Hydrothermal Systems

9504276 Ravizza Ravizza plans to collect hydrothermal water and chimney samples for analysis for the platinum group elements, rhenium and osmium isotopes. We have little understanding of the global cycling of these elements and there appears to be more of these metals being inputted by rivers than is being deposited into sediments. The osmium isotope ratio in sea water has changed dramatically in the past 60 million years which some scientists have attributed to an increase in continental weathering. Understanding the sources and sinks of Os will be important for evaluating this process, and hydrothermal vents and deposits may be a major sink for Os. ***